POWRE: Systematic Preparation of High Space Nuclearity Metal - Carboxylate Clusters

This award of the program for Professional Opportunities for Women in Research and Education (POWRE) supports the research and educational activities of Professor Laura Pence of the University of Hartford. The research explores the potential of adapting a synthetic strategy used with dinuclear transition metal compounds to trinuclear ruthenium carboxylate compounds. The work involves preparing and characterizing trinuclear complexes having one or two open coordination sites from the liberation of a single carboxylate ligand and using the new trinuclear complexes as building blocks for cluster formation. The work underlies a research program on the process of cluster building with potential significance to the chemistry of non-organometallic transition metal clusters of biological importance. The opportunity afforded through the POWRE program will enhance Professor Pence's research potential and her educational mentoring of students at a predominantly undergraduate university.